Microcomputer-Based Laboratory For Intoductory Physics Courses

Microcomputer-based laboratory workstations are being used for data acquisition and analysis in the laboratory experiments of introductory physics courses. These courses reach approximately 200 students per semester, including a large number of education majors.